Digital Government: Knowledge Management Over Time-Varying Geospatial Datasets

EIA-9983445
Agouris, Peggy
University of Maine

Digital Government: Knowledge Management over Time-Varying Geospatial Datasets

Spatially-related data is collected by many government agencies in various formats and for various uses. This project seeks to facilitate the integration of these data, thus providing new uses. This will require the development of a knowledge management framework to provide syntax, context, and semantics, as well as exploring the introduction of time-varying data into the framework. Education and outreach will be part of the project through the development of an on-line short courses related to data integration in the area of geographical information systems. The grantees will be working with government partners (National Imagery and Mapping Agency, the National Agricultural Statistics Service, and the US Army Topographic Engineering Center), as well as an industrial organization, Base Systems, and the non-profit OpenGIS Consortium, which works closely with vendors of GIS products.